U.S.-Argentina Workshop on Fracture and Welding to be held in Buenos Aires from December 9-13, 1991

This award supports a joint workshop between the U.S. and Argentina on fracture and welding. The workshop will include 8 invited experts from the U.S., 4 from Argentina and 4 from other Latin American countries. A large attendance is expected from government labs, universities and private companies from different Latin American countries. The workshop will be held December 9-13, 1991. During the following week, December 16-20, the U.S. participants will be visiting other research facilities in Argentina: INTEMA, Universidad de Mar del Plata; CONEA, several locations in Buenos Aires and Instituto Balseiro in Bariloche. The U.S. participants include the co-organizers: Dr. Hugo Ernst, Georgia Tech, Atlanta, GA, and Dr. John Landes, University of Tennessee, Knoxville, TN. M. Luis de Vedia of the Latin American Welding Foundation in Buenos Aires will be the Argentine co-organizer. The main workshop theme is fracture and welding at both ambient and high temperature. It will combine the latest work in fracture characterization and prediction and apply it to problems of welded structures. This workshop will benefit all sides involved by bringing together experts in fracture and welding from the U.S. and several Latin American countries with the goal of developing future cooperative work.